Complex Dynamics in Higher Dimensions

DMS-0140408
Complex Dynamics in Higher Dimension
Proposal Abstract

The principal investigator proposes to study the dynamics of meromorphic
self-maps of compact complex manifolds. If such a map expands some
cohomology class of the manifold, then the main idea is that there ought
to be a distinguished invariant current representing this class.
Intersections between invariant currents should in turn give rise to
invariant measures that describe the distribution of orbits where the
action of the map is most complicated. Hence the linear action of a
meromorphic map on cohomology should go a long way toward determining a
probabilistic picture of the pointwise dynamics of the map. To justify
these ideas, the investigator proposes to use a combination of techniques
from complex geometry, smooth ergodic theory, and pluripotential
analysis. Various problems in physics and mathematics reduce to questions
about the dynamics of particular meromorphic maps. The investigator
proposes to use some of these as starting points and test cases for his
research.

The study of dynamical systems has grown increasingly important in the
past several decades. Put briefly, a dynamical system is anything--e.g.
the weather, the stock-market, the solar system, etc--that evolves in
time according (at least theoretically) to definite and codifiable rules.
The general goal in studying a dynamical system is to make predictions
about its future state given its present one. If the future is very
far off then this, as any honest forecaster will admit, is typically quite
difficult. Small changes in the present state of the system can imply
huge differences in eventual outcome. The research proposed here is
devoted to better understanding instability in dynamical systems--when
it occurs, why it occurs, and how to recognize it. The research is also
devoted to attaining partial control over instability by making
statistical predictions about the eventual behavior of an unstable system
that do not depend on perfect understanding of its present state. The
dynamical systems that the investigator proposes to study are mathematical
in nature, but they are also archtypes for the systems that one analyzes
in connection with real-world phenomena. The idea is that weather and
the stockmarket and the solar system ought not be treated as a separate
and totally unrelated dynamical systems but as particular examples
of the same general phenomena and subject to similar kinds of analyses.

**********************************